Gordon Research Conference on Neural Development; Salve Regina College; Newport, Rhode Island; June 26-30, 1989

This conference on neural development will focus on cellular and molecular mechanisms which are essential for the development of the system. It is the objective of this program to bring together some of the most active research scientists in areas related to this main theme, as well as a group of some 100 additional scientists with interests related to the topic. Not only will these participants present their most recent findings, but they will find new insight from other presentations and numerous discussions in this informal setting. Hopefully, some totally new approaches to studies of neural development may be formulated based on collaborative ventures established at this conference. The multidisciplinary approach will be emphasized by an organization in which there is a progression throughout the conference starting with a discussion of mechanisms involved in the process of induction, particularly neural induction. This will be followed by sessions on cell lineage and determination, neurotransmitters as developmental signals, formation of neural pathways and targets, and neural crest development. Each topic will occupy a whole day (morning and evening) with the afternoon free for informal interactions and discussion.